Proposal for a Field Workshop on 3.8 Billion Years of Lithospheric Evolution, North China Craton

OISE-0409416
Kusky

This is a workshop proposal to provide funds for Dr. Timothy Kusky, Saint Louis University and six other U.S. scientists to participate in a planning meeting and field sampling to the North China Craton. This activity will also provide opportunities for the U.S. scientists to prepare a proposal to study 3.8 billion years of lithospheric evolution. The workshop will be co-hosted with Beijing University. This project is jointly supported by the NSF and the National Natural Science Foundation of China.